Coding for Non-Uniform Channels

A program of basic research is undertaken to explore the use of different coding options on non-uniform channels found in modern digital communication systems. Disturbances such as fading due to multipath transmission or interference cause errors that are received in bursts, resulting in non-uniform statistics for the channel. In this research the performance of codes, both block and convolutional, on non-uniform channels will be investigated. Reasonable channel models will be developed and the performance of different codes for these channel models will be evaluated. Interleaving has long been used in conjunction with coding as a means of achieving reliable communication on burst-error channels. In this research, the performance of interleaving vis a vis burst error correcting codes will be examined. Other important tasks include the investigation of the performance of concatenated coding systems as measured by their effective channel cutoff rate, channel capacity, and undetected error probability.